Acquisition of a High-Resolution Neuromagnetometer

The acquisition of a high-resolution neuromagnetometer will be utilized to study how active tissue in the brain generates magnetic currents observable outside the brain and how these currents related to cellular occurrences within the tissue. Specifically, this study will analyze: 1) the ionic and structural origin of spontaneous oscillation in the olive- cerebellum system, 2) the current patterns that precede speeding depression and anoxia in cerebellum and retina, and 3) correlations between current generation int he brain and resulting magnetic fields.